Scholarships for Success

Ten (10) new Scholarships for Success are to be awarded each of the first two years and twenty-five (25) new scholarships are to be awarded in the third and fourth years to academically capable, low-income students in computer science, computer technology, engineering, and engineering technology. Each cohort of scholars receives assistance from The Career Center in finding part-time employment opportunities and opportunities for cooperative education, internships, and on-the-job training, career development, planning and job selection. In addition a faculty mentor is assigned to each scholarship recipient cohort.